CEDAR: A Cedar Modeling Study of Global Change in the Mesosphere and Lower Thermosphere

Abstract Akmaev ATM-0003071

This award supports the development of a three dimensional model to further quantify the possible thermal and dynamical response in the mesosphere and lower thermosphere predicted for the global change in the upper atmosphere caused by the increase in greenhouse gas content. The award will build upon the expertise provided by model development support by previous NSF awards. The improved model will included a new parameterization of infrared radiative transfer applicable to a wide range of CO2 concentrations. The improvement will also include feedback mechanisms that modify the radiative, dynamical and chemical environments resulting from the predicted global change perturbations.